Cosmogenic Radionuclides in the Siple Dome Ice Core

*** 9725257 This award is to support a project to measure cosmogenic nuclides in the Siple Dome ice core. Cosmogenic radionuclides in polar ice cores have been used to study long-term variations in several important geophysical variables, including solar activity, geomagnetic field, atmospheric circulation, snow accumulation rates, and others. The investigators will measure profiles of Beryllium-10 (Be-10) and Chlorine-36 (Cl-36) in the entire ice core, which spans the time period from the present to about 100,000 years before present. The resulting time series of nuclide concentrations will be applied to three main problem areas: deducing the history of solar activity, deducing the history of variations in the geomagnetic field, and a detailed comparison of Be-10 and Cl-36 production and the Carbon-14 (C-14) profile. It will be particularly instructive to compare the Antarctic record with the detailed Arctic record from the GISP2 ice core. ***